Isoperimetric Inequalities

Abstract

Award: DMS-0405707
Principal Investigator: Erwin Lutwak, Deane Yang, Gaoyong Zhang

This project continues a long term program to develop extensions
and duals of the Brunn-Minkowski theory, which lies at the very
core of convex geometric analysis. This includes ongoing
investigations of the partial differential equations that arise
in these extensions. Generalizations of affine functionals
associated with convex bodies are another central focus of the
proposed work. A large part of the project concerns establishing
sharp affine isoperimetric isoperimetric inequalities and related
analytic inequalities. The investigators will also continue their
efforts to understand better the connections between affine
convex geometric analysis and information theory.

This project has potential for broader impact in many areas of
science and engineering, because it deals with when and how can
one reconstruct or approximate a geometric object from a limited
number of geometric measurements. This is the central question
in many practical endeavors ranging from computer vision to
medical imaging. Some of the questions being studied by the
investigators are sufficiently concrete that they can be
explained to and investigated by graduate, undergraduate, and
even high school students.